Support for Penrose Conference on Dynamics of Silicic Systems

EAR-0104771
Bergantz

This award will provide funds to offset participant costs for the Geological Society of America (GSA) Penrose Conference entitled "Longevity and Dynamics of Large Silicic Systems" that will be held at Mammoth Lakes, California on June 14-21, 2001. The funds will be used to provide support for travel and registration of students and early-career researchers that will be selected on the basis of need. The applicants for those funds will be asked to provide a curriculum vitae, a poster title for a presentation at the meeting, and a statement of financial need. The results of the conference will be published on GSA Today and posted on the GSA web site.